Travel: Supplemental Funding Request: Collaboration Between Girl Power By Design and Managing Identities Projects

This travel award will support a collaboration between the CSforAll Expanding Girl Power by Design project in the U.S. and the Managing Identities in Diverse Societies Project in Italy. The Girl Power team is developing two theoretical concepts to understand girls' STEM identity, while the Managing Identities team is conducting a longitudinal study to identify supports for the well-being of adolescents with and without a migrant background. Through this collaboration, the two teams will inform and learn from each others’ approaches, ultimately generating knowledge to support girls in STEM within the contexts of the United States, Italy, and beyond. The Girl Power Team will conduct two short-term visits to Emilia-Romagna, Italy, each lasting approximately three weeks, to conduct comparative analyses of minoritized communities across the two international contexts.

The primary purpose of this collaboration is to engage in a comparative analysis of identity development of minoritized girls with access to and engagement with culturally responsive curricula and technologies across two international contexts. In this respect, the research team aims to identify whether the phenomena of Reciprocal Recognition and Critical Amplification are ones that function similarly beyond the localized context of the study in the United States to the broader international context in Italy. The collaboration will involve two short term visits to the research site in Emilia-Romagna, Italy by a core team consisting of the U.S. PI, two senior researchers, and three graduate students. As education researchers from Italy and the United States, respectively, they will examine the impact of concepts of national identity, safety, and criminalization on immigrant ethnic minority girl students' identities in both countries.